Dissertation Research: Social Relationship in Rural Tanzanian Society

This award supports the dissertation research of a graduate student in cultural anthropology who will study changing gender relations in a pastoralist area of east Africa. The research will analyze how changing local conceptions of social and economic class and age affect gender relations in an overall situation of fairly rapid and significant socio-economic development. Most studies on this question have shown that development policies are slanted in favor of men, and result in decreases in the standard of living of women and children relative to changes for men. This project will look at these relationships in more detail. The design is to compare three villages varying on dimensions of development and income, using a combination of intensive ethnography, formal surveys, and analysis of historical documents. The student has lived in this area before for several years, and has the necessary linguistic skills, social and political contacts to carry the research out. This research is important because gender relations in economic development schemes have become a major focus of attention in recent years. This detailed case study will provide material of value to policy makers so that new projects can be designed that benefit women (and the children who are in their care) as well as men.